Clumped isotope reactivity in calcium carbonate: The role of mineralogy, trace elements, organic matter, and internal water

Clumped-isotope thermometry of carbonate minerals is a powerful technique with a wide range of applications in geosciences like reconstructing temperatures of ancient oceans or assessing the thermal evolution of petroleum reservoirs and ore deposits to aid in exploration. The technique is based on the temperature-dependent bonding of heavy oxygen and carbon atoms (“isotopes”). A pressing challenge to improve the accuracy of this technique is to measure the resetting of original clumped-isotope temperatures by heating during sediment burial or hydrothermal activity. This project addresses this knowledge gap through laboratory heating experiments combined with supercomputer-based chemical computations. The findings will improve understanding of the distribution of petroleum, natural gas, and critical minerals in the Earth, and enhance exploration efforts.

The project will focus on two sets of heating experiments. The first involves comprehensive high-pressure experiments on abiotic (non-fossil) aragonite at three temperatures and seven durations to establish the first precise Arrhenius kinetic parameters for solid-state resetting for aragonite. Next, reconnaissance experiments will be performed at two temperatures and four durations on a variety of well-characterized biotic and abiotic calcite and aragonite samples (brachiopods, bivalves, gastropods) that represent a range of fossil ages and elemental, organic matter, and water contents. Water and organic matter contents of samples will be measured to test whether rapid early resetting reflects water loss or organic-matter degradation. Concurrently, density functional theory and constrained ab initio molecular dynamics simulations will be conducted to evaluate the effect of substitution of lattice-bound ions and water on resetting rates. In addition to enhanced applications of clumped isotope methodology, broader impacts include exposure of K-12 students to stable isotope geochemistry through a Chemistry Open House and training of researchers in clumped isotopes and computational chemistry.